Carbon-13 NMR Study of Liquid Crystals

9321114 Fung The most important characteristic of liquid crystals is the presence of orientational ordering without long-range positional ordering. The combination of variable-angle spinning (VAS) and separated local field spectroscopy (SLF) will be used to study the orientational ordering of liquid crystals by C-13 NMR, and to investigate many systems important in basic research and industry. The C-13 NMR will be used to investigate the dynamic process of the reorientation of liquid crystals in a magnetic field. Improvement of the VAS/SLF technique will be considered, and a new method with rapid deceleration in VAS will be used. Further, the possibility of applying 3D NMR to liquid crystal systems will be explored. In addition, molecular dynamics calculations of nematic ordering with a new pseudo-molecule" approach is proposed. ***